Biodiversity and Ecosystem Informatics - BDEI - Planning a Community Science Approach to Biodiversity Monitoring: Extending the Spatial and Temporal Scales

EIA-0131927
Stevenson, Robert
University of Massachusetts - Boston

BDEI: Planning a Community Science Approach to Biodiversity Monitoring: Extending the Spatial and Temporal Scales.

Increasing the spatial scales and temporal frequencies at which species occurrences and locations are
recorded is central to biodiversity informatics. There are not nearly enough trained scientists to do the
job and remote sensing methods have severe limitations for most taxa. This project examines the idea
that it is now possible to rapidly build communities of people (academic taxonomists, amateur natural
historians, environmental educators, concerned citizens and students) and institutions (universities,
environmental NGOs, governmental agencies and schools) to produce important scientific data about
biodiversity. Building monitoring communities is made possible by digital technologies that permit three
key advances:
1) Rapid Color Guides, the production on demand of high quality yet relatively inexpensive mini color
field guides (here called Rapid Color Guides, Foster 1998) that will allow amateurs to correctly identify
many more species in the field.
2) Spatial Coordinates, the ability to accurately record (within a 3 m radius under the best conditions) the
spatial coordinates of individuals or populations using new GPS (Global Positioning System) units.
3) E-Vouchers, the availability of very high quality digital cameras that are field portable and relatively
easy to use that can capture an electronic record of observations in the field.

Along with the wide acceptance of the WWW, these advances permit people to gather and share
biodiversity information in unprecedented ways. Three studies are planned and prototyped to examine
this general claim. First, the variety of taxa recorded during Massachusetts Biodiversity Days, a three-
day statewide citizen-based effort to monitor biodiversity already established in Massachusetts
(http://data.massgis.state.ma.us/Biodiversity/BiodiversityDays.htm) will be expanded. Taxonomic
specialists using digital cameras and printers will design Rapid Color Guides for taxa, which are common
(e.g. ants, bumblebees, spiders, weeds) but rarely recorded by observers because of the lack of a suitable
method to identify them.